Characterizing Trade-Offs Between Sensitivity and Optimality: The Tolerance Approach

The primary focus of this research is on linear programming sensitivity analysis. The approach being proposed is called the "tolerance approach" and the basic idea is to be able to tell the decision maker that a given solution will be optimal as long as each objective function coefficient is within a certain maximum tolerance percentage of its nominal value. The approach can exploit a priori information on ranges of variability of the coefficients to yield larger maximum tolerance percentages. This research will generalize the tolerance approach to characterize trade-offs between optimality and sensitivity of a solution. More specifically, the project will address the following points: to characterize trade-offs between optimality and sensitivity of a solution and to develop efficient algorithms to calculate such trade-offs for general linear programming problems; to streamline these results to network problems; and to investigate possible extensions of the results to nonlinear, integer, and multiple objective programming problems. This research concerns the trade-offs between sensitivity and optimality of a solution in linear programming. Both theoretical justification and efficient algorithms will be derived to characterize and compute the trade-offs. The results will be specialized for network problems and possible extensions to multiple objective programming problems will be investigated. It is expected that the research will yield valuable information which can be used by decision-makers in implementing solutions of large optimization problems.